Cooperative Agreement for the Management, Operation of the National Radio Astronomy Observatory and Support of Other Scientific Activities

Basic Ordering Agreement for the
Management and Operation
Of the National Radio Astronomy Observatory

Abstract
0223851
Giaconni

The Basic Ordering agreement will enable the Associated Universities Incorporated to receive funds from the National Science Foundation for the beneficial operation and management of the National Radio Astronomy Observatory (NRAO).
***